Study of Photoplastic Effect on Ice

9413362 Petrenko This project is co-funded between the Condensed Matter Physics and Polar Glaciology Programs. The project will investigate the characteristics and physical mechanisms of the photoplastic effect (PPE) in ice: pure and doped ice demonstrate significant and persistent hardening under the action of ultraviolet illumination. The fundamental mechanism of PPE in ice is not understood, and is of importance from a fundamental solid state physics standpoint as well as geophysical and environmental viewpoints. Both laboratory and field experiments will be conducted. Emphasis will be placed in microscopic processes which are studied by internal friction, dislocation currents, conductivity and photoconductivity, etching and replicating of dislocations emerging on the surface of the ice, and spectroscopic study of photochemical products accumulating ice under illumination. The project also includes a modest theory component. The results are intended to determine the fundamental mechanism of the PPE in ice, and whether or not ultraviolet solar irradiation is essential in forming plastic properties of natural ice and snow. % % % This project is co-funded between the Condensed Matter Physics and Polar Glaciology Programs. The project will investigate the characteristics and physical mechanisms of the photoplastic effect (PPE) in ice: pure and doped ice demonstrate significant and persistent hardening under the action of ultraviolet illumination. The fundamental mechanism of ppe in ice is not understood, and is of importance from a fundamental solid state physics standpoint as well as geophysical and environmental viewpoints. Both laboratory and field experiments will conducted. The project also includes a modest theory component. The results are intended to determine the fundamental mechanism of the PPE in ice, and whether or not ultraviolet solar irradiation is essential in forming plastic properties of natural ice and snow. ***